Electronic Structure and Properties of Metallic Alloys

This grant examines the electronic structure of several binary metallic alloy systems, concentrating on the Cu-Au, Ag-Mg, and Fe- Ni systems. A combination of ultra-violet and X-ray photoelectron spectroscopies and first principles electronic structure and photocurrent calculations are employed. Order-disorder and the relationship between electronic configuration and magnetism are explored. The selected alloy systems have intermetallic compounds with long-period superlattice structures. Energy bands are mapped in ordered and disordered CuAu and AgMg using angle-resolved photoemission measurements. In the Fe-Ni system large changes in magnetic properties occur with composition and structure changes. %%% New insights into the electronic structure of metallic alloys should result from the research. The alloys selected are of interest from their intermetallic compound formation and/or their magnetic properties.